Acquisition of a Vacuum Induction Melting System

This project will provide a vacuum induction melting (VIM) system that is important to ongoing research in the Materials Science and Engineering Department at UAB. The VIM system will allow the participating Department faculty to produce liter-sized heats of research alloys. This is particularly important to projects which require the experimetnal verification of computational models describing melting, solidification, and microstructural evolution. The melting system will be used to produce high purity, binary and ternary alloys for experimentation. Research projects include modelling of microstructural evolution during rapid thermal processing, fiber-matrix interface stability in Boride fiber reinforced Titanium-Aluminum intermetallic-composites, Titanium Aluminide-Silicon Carbide diffusion couples.